CISE Research Infrastructure: MultiStore: A Research Infrastructure for Management, Analysis and Visualization of Large-Scale Multidimensional Data Sets

EIA-0101244
Aidong Zhang
SUNY at Buffalo

MultiStore: A Research Infrastructure for Management, Analysis and Visualization of Large-Scale Multi-dimensional Data Sets

This project establishes a research infrastructure (MultiStore) for supporting integrated research in specific targeted areas of Computer Science, including Multimedia, visualization, Geographical Information Systems (GIS) and Bioinformatics. The research objective is to develop computational theories and algorithms for storing, managing, analyzing, querying and visualizing multi-dimensional data sets that are generated from the related fields. The research components include: (1) Data storage and management. We develop approaches to manage large-scale multi-dimensional data sets. Particular research issues include: multi-dimensional data storage, indexing, and clustering. (2) Data visualization. We develop effective graphics and visualization techniques that can help the user in information processing tasks. Particular research topics addressed include graph visualization and detecting clusters in a multidimensional data set through visualization. The visualization tools will be used in biomedical image understanding and analysis. (3) Data analysis and querying. We focus on geographical image understanding, analysis and querying. The particular research issues include geographical metadata/knowledge extraction, geographical metadata/knowledge representation and management, and geographical metadata/knowledge querying. (4) Data mining and bioinformatics. We develop data mining techniques for determination of protein structures and detection of gene expression patterns. Through these research activities, the fundamental understanding and novel techniques will be provided to support the management of various large-scale multi-dimensional data sets.